Genetic and Molecular Analysis of Sucrose Metabolism in Maize

Import and metabolism of sucrose is essential to growth and development of non-photosynthetic cells in the vast majority of plant species. Only two enzymatic reactions can catalyze sucrose breakdown; sucrose synthase or invertase. The physiological significance of each pathway has been widely debated. Recent advances in molecular analysis of the genes encoding these enzymes have opened up exciting possibilities for resolving these issues. We have previously shown that the sucrose synthase genes of maize are differentially regulated by sugar availability. Recently we have been able to extend this combined molecular genetic and physiological approach to the invertase genes in maize. A cDNA clone for maize invertase and identified maize lines with genetic deficiencies in invertase expression has been isolated. In particular, we have focused a maize genotype that specifically lacks invertase activity in the primary root system, leaving the whole plant free from direct effects of the deficiency. These proposed experiments will: 1) Characterize a pair of maize invertase genes - their structure, expression, and physilogical function, 2) Determine the genetic basis and physiological consequences of a primary root invertase deficiency in maize, 3) Test the effects of double and triple mutant combinations of sucrose synthase and invertase deficiencies.